Strongly Correlated and Disordered Fermi Systems

Theoretical research will be conducted on the properties of Fermi systems where the interparticle interactions or the lack of translational invariance gives rise to qualitatively new effects. The work is relevant to many systems of current experimental interest such as heavy Fermion compounds, liquid Helium three near solidification, high temperature superconductors, doped semiconductors, amorphous alloys and alkali-doped Fullerenes. The understanding of the thermodynamics and the transport properties of strongly interacting electrons in amorphous and crystalline solids is relevant to basic science and will ultimately lead to the design of technologically useful materials. %%% Theoretical research will be done on the behavior of electrons which interact strongly with each other. This is a very fundamental problem which remains unsolved. However, its solution will have major impacts on a variety of materials including the high temperature superconductors and the newly discovered superconducting Fullerenes.